Automorphic Forms on Shimura Varieties and L-functions

DMS-0244401
Hida, Haruzo

Abstract:

The principal investigator and his collaborators
will embark on his study of arithmetic geometry of
Shimura varieties of symplectic and unitary type.
After the development of the p-adic
deformation theory of automorphic forms on reductive groups
admitting Shimura varieties, one should now be able to fathom
its full implication in more arithmetic research in algebraic
number theory. We pursue the following goals:
1. construction of p-adic automorphic L-functions of general
linear groups;
2. proof of non-vanishing modulo a given prime p of such L-values;
3. determination of divisibility by p of the L-functions;
4. possible proof of the anticyclotomic main conjectures
in an non-abelian setting.
In addition to these main projects, the investigator will study
jointly with his graduate students, the zeta function of Shimura varieties
twisted by non-soluble mod p Galois representations
and Hilbert's twelfth problem over general totally real fields.

A systematic study of elliptic modular forms whose coefficients
are (p-adic) analytic functions was started
by the principal investigator and has been developed
into a deformation theory of automorphic forms on larger
classical groups. The elliptic theory has found numerous
profound applications. For example, it was used as an
essential ingredient of a proof of Iwasawa's conjecture by Wiles,
of the proof of longstanding Fermat's last theorem and the Shimura-Taniyama
conjecture by Wiles and R. Taylor and of a proof of the
Artin conjecture of many non-soluble two dimensional Artin representations
by R. Taylor and his collaborators. The principal investigator
will pursue such applications in a more general framework
of automorphic forms on classical groups.
This would results new cases of non-abelian class number formulas
(that is, a proof of some main conjectures of automorphic Iwasawa theory)
which connect purely arithmetically defined invariants to purely analytically
defined values of zeta functions (thus opening a way of computing
such numbers by analytic means).